Microbial Communities: Theory and Practice

This proposal presents a plan to construct integrated observational and theoretical tools for studying and characterizing the ecology of microbial communities, biofilms and mats in particular. The focus of study is a photosynthetically-driven microbial mat ecosystem located in the effluent channels of Mushroom Spring, Yellowstone National Park. This system is advantageous because of its isolation, relative simplicity, and the availability of decades of prior study. Work will consist of (1) characterization of important parameters through on-site microsensor measurements, laboratory analyses of chemistry of water column samples, and gene sequencing (and accompanying analysis) of microbial inhabitants both in the mats as well as in the water, as well as (2) community modeling of the mat ecosystem. The modeling will be based on 1D biofilm models, including light absorption, combined with a microbial speciation model. Key guilds and/or species, along with important chemcial species, will be included and parameters will be determined based on measurements combined with electron transfer principles. The principle goal of the project is to successfully predict distribution of microbial species within the mat, measured by matching model predictions to actual population distribution measurement studies. In the course of this project, a graduate student will be trained in both mathematical as well as microbiology methods.
This proposal presents a program to advance theory of community microbial ecology in conjunction with a well-defined and well-studied phototrophic microbial community living in the effluent of Mushroom Spring, Yellowstone National Park. Prokaryotes (bacteria and archaea) are estimated to make up approximately half of extant biomass. Most of these microbes live in complex biofilm communities that exploit available sources of chemical free energy. As such, they are key components of almost all geochemical cycles, they are responsible for a large percentage of the global photosynthesis budget, they are everpresent threats to all multicellular organisms (which are, in the eyes of a microbe, appealing sources of free energy and substrates), while, at the same time, they assist in digestion in all animals (we bring free energy to them, and they help extract it), and so on. By any measure, ecology of these microbes, and the communities in which they reside, is a topic of keen interest. Microbial communities are able to react comparatively quickly to environmental variations, particularly those relatively slow, secular changes of the sort that are of wide current interest. Thus they potentially present a useful statistic for effects of climate change on the environment. However, a better understanding of the workings of these ecosystems will be essential before such information can be extracted. Microbial communities are also of increasing interest in many engineered systems (including, of particular relevance to this proposal, photosynthetically-driven microbial biofuel production). One of the most important challenges in these efforts, as in almost all engineered microbial systems, is ecological stability: microbial communities will evolve fairly rapidly to suit their own purposes, purposes which may not be consistent with the engineering goals of efficient, commercial-scale fuel production. With all of these points as motivation, this proposal aims to advance the state of microbial community population theory through a coordinated study of mathematical modeling with field and laboratory study.